Anisotropic Energy Functionals in Geometric Analysis

Anisotropic energies were introduced by Gibbs in the 19th century to model the equilibrium shape of crystals and, more generally, the surface tension at the interfaces of any two different materials. An increasing interest has been devoted to the corresponding geometric variational problems in mathematics. Minimizing the area functional, the simplest anisotropic energy, is one of the most famous examples in this class of problems. It dates back to the work of Lagrange in 1760 and has had a major impact both in physics and in mathematics. Jesse Douglas was awarded the first Fields Medal in 1936 for his results on this topic; yet, a variety of basic questions remain open, especially in the more general anisotropic setting. The goal of this project is to develop new theories and techniques to improve the state of the art of anisotropic geometric variational problems.

This project aims to increase our understanding of critical points for general elliptic integrands. In contrast to the reach theory of minimal surfaces, i.e., critical points of the area functional, very little is understood in the anisotropic framework. One of the main themes of this project is the existence of anisotropic minimal hypersurfaces in closed Riemannian manifolds. This is a fascinating and central question in geometric analysis, which has been answered for the area functional by Pitts, Schoen, Simon and Yau in the eighties. The investigator will address the more general anisotropic setting, broadening the reach of the min-max theory. This will require a refined analysis of the structure of varifolds, which will find applications also in the construction of geometric flows. Another goal of this project is to study existence and regularity results for energy minimizers of the set-theoretic Plateau problem in general metric spaces. This investigation will be then further refined for size minimizer rectifiable currents. Moreover, the investigator will study the behavior of hypersurfaces with almost constant anisotropic mean curvature. Finally, the stability and regularity conjectures in optimal branched transport will be addressed.